Systems of Variable Type

9302923 Feferman Modern programming languages manipulate potentially infinite objects (streams, arbitrary precision reals, etc.). Examples include: Haskell, ML, and other functional languages, Ada (for example tasks and processes), and C++ (objects being essentially higher-order entities). Real-time applications have specifications that involve both analog/continuous and discrete entities and relations between these domains. To develop formal methods for functional programming languages for such applications, and to enforce modular construction of specifications and programs for programming-in-the-large, one needs more general (non-algebraic) notions of abstract data types (ADTs) than have been treated in most of the literature. Several questions must then be addressed, including the following: How can the notion of ADT be enriched (generalized ADTs) to encompass such objects? What does it mean to compute with these objects? It is important to have an understanding beyond just manipulation of finite representations. What is a suitable formal notation for enriching logical theories by declaring such ADTs? This research would focus on the following three closely related topics: computation over generalized ADTs, systems for definition of generalized ADTs, and substantial verification examples worked out within the generalized ADT setting. The project will continue work within the framework of variable type (VT) theories. ***